States of Hydrogen in Semiconductors

In-depth experimental and theoretical studies of the role of hydrogen in semiconductor single crystals, the purest and structurally most perfect materials, will be made. Important scientific and technical information has been gained recently from the study of many hydrogen-containing impurity and defect complexes in silicon, germanium, and gallium arsenide. The plan is to investigate the formation and detailed structure of some of these complexes. Recent IR spectroscopy information on partially hydrogen-passivated multivalent acceptors indicates the existence of both static and dynamic centers. Information on electrically non-active centers on the other hand is very limited. They will make use of local vibrational mode spectroscopy, together with uniaxial stress, to determine the structure of fully passivated dopants. Raman and EPR spectroscopies will be used in special cases. Modelling and calculations for various configurations will be proposed and carried out in close comparison with the data. In a parallel effort an investigation of various hydrogen- introduction mechanisms will be made. Hydrogen RF plasmas, electrolysis and chemo-mechanical polishing all seem to lead to hydrogenation and associated dopant passivation. Attempts will be made to verify recent conjectures and theoretical calculations that give the hydrogen charge state as a function of the semiconductor Fermi level. Various theoretical mechanisms will be examined in connection with these experiments. Results should be of significance for many processes in semiconductor technology, such as plasma deposition, etching, oxidation, and ion implantation. Most of these processes involve, intentionally of unintentionally, hydrogen. An improved understanding of its role in semiconductors is necessary for the successful development of future silicon and gallium arsenide based devices.